Workshop on The Role of Clouds in Global Change

The object of this work is to organize and convene a suitable selection of atmospheric scientists who will devise a research plan on the role of clouds and radiation as applied to Global Change.